Austin Community College Internet Connection Project

3 From: "David A. Staudt" <dstaudt> at NOTE 8/3/94 11:22AM (993 bytes: 19 ln) To: gclavon at nsf15 Subject: Austin ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] Mime-Version: 1.0 Content-Type: text/plain; charset="us-ascii" ------------------------------- Message Contents ------------------------------- ABSTRACT "Austin Community College Internet Connection Project" Austin Community College PI: Lee Hisle NCR-9402177 This project connects Austin Community College to the Internet over a T1 (1.544 million bits per second) line. Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.